REU Site: Research Experiences for Undergraduates Site in the Physics Department at North Carolina State University

North Carolina State University operates a Research Experience for Undergraduates (REU) Site in its Physics Department. The REU Site offers research opportunities in physics for rising seniors. Undergraduate research projects span the areas of materials and condensed matter physics, with some projects in other areas of physics. Fifteen undergraduate students are recruited every year for a ten-week summer research experience. Opportunities are also available for travel to professional meetings during the academic year to present results from the summer research. Objectives of the program are to provide a rich research experience for rising seniors that will encourage them to continue graduate studies and will help them in making informed decisions about academic programs.